Detector Development for, and Nuclear Physics Research with the CLAS Detector at CEBAF

9512705 Doughty Research will be carried out in high energy electron scattering and photonuclear reactions at CEBAF to study the structure of the nucleon and excited states. Included is work on the spin structure of the proton and test of the Gerasimov-Drell- Hearn sum rule. The structure of excited baryons will be carried out at high momentum transfers, where there is significant model dependence at the quark level. Research in these areas will advance our understanding of the quark structure of the nucleon and of the nucleon's complex spin structure in terms of constituent and sea quarks and gluons. These topics are high priority activities in contemporary nuclear physics. Technical development of the CEBAF CLAS detector will also be carried out, with specific responsibility for development of the event-trigger subsystem and other hardware and software subsystems of the overall CLAS detector data acquisition system. Education of undergraduates and masters-level graduate students is a central component of this grant.***